Approximation Issues in Stability & Control of Distributed Parameter Systems

The project deals generally with the analysis and development of reliable
and suitable approximation schemes for mathematical models of complex
physical phenomena such as damped elastic structures, processes with
delays, coupled structures (including models of smart materials), etc. A
standard approach to analyzing and solving problems for such systems is
to instead consider an approximate system, which ideally is both finite
dimensional and rich enough to retain properties of the original (infinite
dimensional) system. But it is well known that some approximate systems
do not retain important properties of the original system, such as growth
rate, stability robustness, etc. (In fact, it is well known that some models
of elastic structures with boundary damping have an energy decay rate that
is not preserved by standard "finite element" or "finite difference"
approximate systems). This project focuses on how and why certain
properties are retained or lost under approximation, and on developing a
systematic method for constructing "property-preserving" approximation
schemes. The key is analyzing the geometry (inner product) under which
the original system is projected onto the approximating system, and one
thrust is that changing geometries can improve approximations so that
important properties are better preserved. This is a recent idea on which
the PI has demonstrated successful implementation for some preliminary
examples. This project will extend in significant ways the method and the
applications.

There are many practical applications in science and engineering that
involve elastic structures, such as large antennae, fluid flow over an
airfoil, vibrating buildings, etc. In the presence of evolving "smart
materials" and actuator technologies, these lead to complex mathematical
models that cannot be fully resolved on even the most powerful
computers. A standard strategy for overcoming this difficulty is to instead
consider a simpler model (an "approximation scheme") which is a
reasonably good approximation of the original complex model, and which
can also be solved on a computer. There are typically many approximation
schemes for any given model, and since something is always lost in the
approximation, some important questions are - how good is a 'reasonably
good approximation'? and - which important properties are lost or
preserved? Further, since these computer models are used to better
understand and control these complex systems, high-fidelity
approximation schemes are essential. This project will focus on these
questions, with the goal of developing a systematic methodology for a
broad range of applications, and of developing software based on the
theory.